CAREER: To Be Nitrated or To Be Crosslinked: Illuminating Unusual Cytochrome P450 Enzymes in RiPP Biosynthesis

Researchers from the University of Georgia (UGA) are investigating the enzymatic strategies that underpin aromatic nitration and crosslinking reactions during the maturation of ribosomally synthesized and post-translationally modified peptides (RiPPs). RiPPs are an important source of bioactive natural products with significant therapeutic potential, and cytochrome P450 enzymes (CYPs) play central roles in diversifying their structures and functions through selective oxidative modifications. An emerging family of CYPs catalyzes unusual transformations on structurally minimal pentapeptides, yet their molecular mechanisms and structure-function relationships remain largely unknown. The research team is investigating how these closely related enzymes recognize similar peptide substrates while selectively catalyzing direct aromatic nitration or diverse aromatic coupling reactions. Their discoveries could expand the fundamental understanding of heme-based catalysis, uncover new enzymatic systems for peptide modification, and guide the development of biocatalysts for aromatic functionalization. The project will also strengthen STEM education and broaden participation in chemistry through research-integrated instruction and mentoring, UGA outreach programs, and public science exhibitions.

This project pursues three research objectives. First, it will elucidate the catalytic pathway of CYP-catalyzed direct nitration in the presence of molecular oxygen and nitric oxide. Mechanistic probes and substrate analogs will be coupled with enzyme kinetic studies to characterize reactive intermediates and provide mechanistic insight into this noncanonical CYP activity. Second, two closely related CYPs catalyze either tyrosine nitration or tyrosine-histidine crosslinking reactions on the same peptide substrate. The project will define the molecular determinants underlying their divergent catalytic specificity and reprogram these enzymes to achieve interconvertible activities. Third, the project will unveil structure-function relationships across a broad set of peptide-modifying CYPs through comparative structural and functional analyses, with the goal of discovering new activities involving both aromatic and aliphatic residues. The research integrates biochemical, spectroscopic, structural, bioinformatic, and computational approaches to define the molecular basis of small molecule activation, enzyme specificity, and catalytic selectivity. Together, this project provides a unique opportunity to uncover how subtle variations in enzyme architecture give rise to distinct chemical transformations.